Statistical Process Control Laboratory

The equipment dedicated to this project supports the integration of Statistical Process Control (SPC) into the undergraduate industrial engineering manufacturing laboratory at this institution. Students perform hands-on experiments in SPC techniques in a real-time data collection environment to gain expertise in both manufacturing and the automation of SPC. The equipment that supports this project includes: digital measuring instruments to measure dimensions of parts as quality characteristics; data collection and transmission devices to collect or transmit data from gages to the microcomputers; microcomputers to process the real-time data; peripheral devices to produce control charts and reports; and, SPC software that analyzes quality information in real time. This award is being matched by an equal sum from the grantee.